The Possession of Kuru: Exchange Relations In Modern Science

Proposal Abstract
Warwick Anderson, University of California -San Francisco
THE POSSESSION OF KURU: EXCHANGE RELATIONS IN MODERN SCIENCE

This project explores the material cultures of modern by looking intensively at the case of D. Carleton Gajdusek's investigations of the disease of kuru, conducted among the Fore people of New Guinea in the 1950s and 1960s. This focus is on the circulation of goods in global biomedical science. This is a multi-sited historical study designed principally to describe and explain transactions involving local inhabitants, anthropologists and biomedical scientists, exchanges clustered around contested kuru material, principally brains, blood and corpses. The goal is to outline some of the basic features of the material cultures of late colonial, postwar scientific exchange, and to see how these material cultures structured and transformed the identities of transactors. The transaction of kuru material can help us to think more generally about the creation of value and the circulation of goods in global science. In view of Gajdusek's later (1990s)
involvement in the patenting of cell lines, this study will additionally present an
unrivalled opportunity to consider how local exchange regimes of science may have
changed over the last fifty years, in particular to investigate whether science has become
more commodified and marketable. The study of the character of kuru transactions etches
in especially clear relief the more recent global traffic of genetic material (including that
proposed in the Human Genome Diversity Project). Moreover, the analysis of the
changing transactional orders of global science can serve to illuminate contemporary
tensions between ownership and authorship in science, and prompts us to reconsider
scientific authorship as an exchange function, possibly now an imperiled form of
exchange, not just as a writing process. This is essentially a historical study that
addresses issues usually in the province of anthropology or sociology: it describes how
scientific identities are fashioned in collection and exchange; it advances the analysis of
the material cultures of late-twentieth century science; it explores new ways of describing
the increasing global circulation of goods in science, and the creation of value in
international scientific transactions; and it brings the Asia-Pacific region into focus in
science and technology studies as an important, but previously much neglected, location
of scientific production and exchange. The outcomes include a monograph, a series of
articles, and enhanced graduate student education.